I/UCRC for Tie Project with the University of California at Berkeley for a Substructure Method for Dynamic Simulation ofMicromechanical Systems with Geometric Nonlinearities

This is a "Tie" project between the University of Iowa and the University of California at Berkeley. The Berkeley I/UCRC for Sensors and Actuators is fabricating micromechanical devices for precision instrument applications with structural nonlinear behavior. To support analysis of micromechanical instruments, it is important to develop a numerically efficient structure dynamic response simulation capability that accounts for geometric nonlinearity. The I/UCRC for Simulation Center for Mechanical System at the University of Iowa has established very strong research base in simulation software for dynamics of mechanical systems. This project meets the requirements of NSF I/UCRC Program "Tie" project award. The Program Director recommends the University of Iowa be awarded $50,000 for a two year "Tie" project